Conference: Commutative Algebra in the South 2025

This award supports participation in the conference “Commutative Algebra in the South 2025,” which will be held at Georgia State University on April 5 and 6, 2025. The conference is focused on recent advances in commutative algebra. The conference aims to foster new collaborations, including those among researchers from institutions located within the southern US. The conference program will include short talks and a poster session that highlight results of early-career mathematicians, including those of graduate students.

Experts on a broad range of topics in commutative algebra and related areas will present recently obtained research results, and describe the techniques used to obtain them. The conference will include invited lectures focusing on cohomology theory, homological algebra, prime characteristic methods, mixed characteristic commutative algebra, and combinatorial methods in algebra. The website for the conference is https://cats-math.github.io